Marriage Opportunities and Women's Roles in the U.S.

This research focuses on some principal consequences of the "marriage squeeze", the extent to which imbalances between the numbers of marriageable males and females affect marriage and divorce rates, fertility, and female labor force participation. The study addresses theoretically important questions as to the relationships between demographic characteristics of the population and opportunities of the individuals within it. Determining how women's marriage opportunities lead to variations in marriage, marital and nonmarital fertility, labor force participation and divorce is central to our understanding of these social processes. The study also will address the question of how black-white differences in marriage and other outcomes relate to marriage opportunities. The project has three major objectives. The first is to determine how the marriage squeeze for women varies by age, race, educational attainment and geographic area. The second is to examine the effect of marriage opportunities on rates of marriage, fertility, labor force participation and divorce. The third objective is to investigate how racial differences in marriage opportunities contribute to racial differences in marriage, fertility, illegitimacy, labor force participation and divorce. Both 1980 Census data and data from the National Center for Health Statistics will be drawn upon to address these question. The findings of this research will help clarify major questions in the study of women's lives. While social and economic theorists have argued that a causal link exists between women's marital opportunities and the roles they occupy, their theories have not been adequately tested. The deficit of marriageable men has been hypothesized to produce low rates of marriage and fertility and higher rates of illegitimacy, divorce and female labor force participation. Dr. Scott analyzes these outcomes to test the assertion that the marriage squeeze is a powerful force shaping the lives of American women. This analysis of marriage opportunities may be especially important in gaining a broader understanding of the links between demographic changes in the population and other societal changes.